Acquisition of an Automated DNA Sequencing and Sample Prep Core Unit for Research and Education

AWARD ABSTRACT - 9977691

This award will fund the purchase of a Beckman Coulter CEQ 2000
Automated DNA Sequencing and Sample Prep Core Unit. Based on
well-established DNA sequencing technology, this system will provide for a
significant increase in the productivity and cost effectiveness of
undergraduate/graduate research and education in molecular biology at the
University of Denver. Specific research programs that will benefit
immediately include National Science Foundation-funded studies on: the
molecular evolution of endocrine neuropeptide hormones, avian sex
chromosomes, and insect steroidogenesis; the population genetics of
endangered species; the use of site-directed mutagenesis to delineate the
structural properties of proteins; and the regulation and ecological
significance of the cytochrome P450 superfamily of toxin-metabolizing
enzymes. Additionally, use of the automated sequencer in collaborative
work in conservation genetics with researchers from the Denver zoological
gardens, will further studies of the genetic diversity of endangered and
threatened species.
Beyond the in-depth training of undergraduate and graduate
students in the research laboratory setting, a broad range of
classroom-oriented educational goals will be advanced. Benefits will be
particularly evident in the molecular-oriented laboratory courses that are
at the heart of the new Bachelor of Science and Bachelor of Arts degrees
in Molecular Biology offered by the Department of Biological Sciences.
Department-sponsored biotechnology classes offered to high school students
and teacher-training workshops that promote hands-on science education at
the secondary school level will also be greatly enhanced. The benefit to
high school outreach efforts is immeasurable given that these programs
target students in urban and low-income school districts who have
traditionally been underrepresented in the natural sciences.
In short, acquisition of the CEQ 2000 DNA Sequencing and Sample
Prep Core Unit will provide significant and immediate benefits to
education at the secondary, undergraduate and graduate levels, while
providing a cost-efficient means of satisfying the growing DNA sequencing
needs of researchers funded by the National Science Foundation in both the
Department of Biological Sciences and the Department of Chemistry and
Biochemistry.